Nonlinear Surface Waves on Water of Finite Depth

9971764

NONLINEAR SURFACE WAVES ON WATER OF FINITE DEPTH

Shu-Ming Sun

The project concerns nonlinear capillary-gravity waves on water of
finite depth. By ``water'', it means that an incompressible, inviscid
fluid with constant density is moving under the influence of the gravity
with surface tension on the free surface and the flow is irrotational.
The proposed research focuses on the mathematical theory of nonlinear
capillary-gravity waves on water bounded by a rigid horizontal bottom
and a free surface. It consists of two parts. The first part intends to
give a mathematical proof of the existence of three-dimensional propagating
waves bifurcating from a two-dimensional solitary wave with large surface
tension. The second part deals with the motion of capillary-gravity waves
on the free surface of water in a two-dimensional rectangular region.

The theory of water waves plays a crucial role in the development of
fluid mechanics. Apart from being important in various branches of
engineering and applied sciences, many water-wave phenomena happen in
every-day experience. Waves generated by ships in rivers or reservoirs
and waves generated by wind or earthquakes in oceans are probably the
most familiar examples. This work focuses on certain wave motions on the
free surface of water in oceans or reservoirs and intends to give some
conditions for generating certain kinds of waves and obtain the large-time
behavior of these waves. The results obtained from this research may
present explanations of some natural phenomena, such as wave propagation
in oceans generated by earthquakes, and provide descriptions of some wave
motions in reservoirs that can be observed. Such understanding of those
wave motions in oceans or reservoirs can be used to predict certain natural
phenomena for preventing human disasters caused by them as well as
benefiting from them, such as generating more electricity.